Boundary Implications for Interval Function Properties

This award will permit the implementation of an algorithm recently developed by the PI ("Tests for Hurwitz and Schur Properties of Convex Combinations of Complex Polynomials," to appear), and an algorithm for multivariate interval polynomials.